NSF Geospace Environment Modeling (GEM) Workshop Coordination: 1995-1997

This new proposal requests funds to support the coordination of the NSF Geospace Environment Modeling (GEM) workshops. The GEM workshops are comprised annually of a week-long workshop during the summer and a half-day mini-workshop in conjunction with each Fall American Geophysical Union (AGU) meeting. The next summer workshop will be held in Snowmass, Colorado in late June 1995. Funds will support all facets of workshop coordination, including: facility planning, meeting logistics organization, room and audio-visual rental, student and scientist travel support, and associated administrative support. The goals of the workshops are to identify and work toward solutions of outstanding problems in several focused research areas that will contribute to the ultimate development of a magnetospheric global circulation model. The goal of the workshop coordination is to provide organized forums in order to foster the community-wide discussions and research needed to achieve the GEM initiative goals.